Computer Studies of Wave Pheonomena in Space Plasma (Atmospheric Sciences)

Dr. Hudson will undertake four research projects. The first involves simulations of active experiments in space. Particle simulations including beam density gradients are proposed, using an algorithm which extends a one dimensional electrostatic particle code to retain density gradient information. The second topic is whistler noise generation near the earth's plasmapause. A hybrid electromagnetic code, which includes magnetic field gradient effects, will be extended to include electron particle dynamics. The objective is to compare nonlinear and convective amplification of whistlers in the plasmapause region. The third topic is research into two hardware techniques for extending the size of simulation systems. The final research project simulates ion acoustic double layer evolution in an H+ - O+ plasma. These localized potential jumps, which are thought to contribute to auroral particle acceleration, are a basic feature of magnetized ion acoustic turbulence. Interactive activities will include teaching a senor seminar course in Simulations of Space Plasma Experiments and giving seminars on her research. Additionally, Dr. Hudson will organize a series of seminars on extraterestrial physics in which professional women scientists will participate. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.